Workshop on: Microbial Genome Sequencing: Current Status and Future Needs, March 19-21, 1999, in New Orleans, Louisiana

9813433
Relman
The American Academy of Microbiology will convene an interdisciplinary colloquium of leading scientists to deliberate and develop a comprehensive, analytical report, and action plan. The colloquium will bring together 30-35 scientists from the USA and abroad for intense, highly focuses deliberations in small groups. The colloquium will focus on the following:

À Selection of microbial genomes, prioritization, logistics and technical aspects.
À Inference of function from full genome sequence.
À Data and technology management, access, funding, and public policy
À Role for professional societies, such as the American Society for Microbiology.

A report will be prepared containing the in-depth analysis of the issues and recommendations for a future plan of action, and disseminated to the scientific community, to federal agencies, to policy makers, and to the public.